Mechanisms controlling Ect2 and Cyk4-mediated activation of Rho1

Cells evenly divide their genetic information through a process called cytokinesis. Failures in cytokinesis can result in the duplication or loss of genetic information, which is a hallmark of genomic instability and a cause of diseases like cancer. During cytokinesis, numerous proteins localize to the plasma membrane and ultimately concentrate at the site of cell division. Despite the critical importance of this process, the mechanisms controlling membrane localization and activity of cytokinetic proteins remain unclear. Using biochemical methods, this project will decipher how cytokinetic proteins are regulated to prevent errors in cell division. In studying these essential components of multicellular life, this project provides an opportunity for early career scientists to learn modern skills in single molecule imaging, structural biochemistry, enzyme kinetics, and quantitative image analysis. Trainees will also receive mentorship that improves their science communication and leadership skills. This includes helping the principal investigator develop microscopy-based learning modules for public outreach and K-12 education that communicates the importance of studying cellular processes to improve human health.

During cytokinesis, active Rho1 GTPases organize into spatial patterns on the plasma membrane that ultimately concentrate at the cleavage furrow. Essential for Rho1 spatial organization is the highly conserved guanine nucleotide exchange factor (GEF), Ect2, and a GTPase activating protein (GAP), Cyk4. Despite the critical role Ect2 and Cyk4 serve in regulating Rho1 activity, the mechanisms controlling membrane localization and activity of these proteins remains unclear. To fill this gap in knowledge, the Hansen lab will perform single molecule imaging experiments on reconstituted membrane surfaces to determine how Ect2 regulates Rho1 activity (Goal 1). In parallel, they will determine how Cyk4 modulates Ect2 membrane localization and activity. This includes using structural biochemistry approaches to decipher the paradoxical role of the Cyk4 GAP domain in stimulating Rho1 activation (Goal 2). Finally, this project will elucidate how protein oligomerization modulates Cyk4 membrane localization, Ect2 interactions, and the activation of Rho1 GTPases (Goal 3). By establishing a novel platform for biochemically reconstituting Rho GTPase activation, this work will reveal mechanistic details that are currently inaccessible through cell biology and solution-based assays. Together, this research will be foundational for future studies aimed at reconstituting more complex emergent properties such as the self-organized membrane oscillations of Rho1 GTPases that underlie actomyosin contractile ring formation or microtubule positioning during cytokinesis.